A Coding Theoretic Approach to Lossless Image Compression

9505845 Magliveras This research explores a new lossless image compression technique. The method is based on optimal non-linear codes of spanning trees. Maximum compression rates occur for codes of a certain critical covering radius, whose value depends on the statistical characteristics of the image. The method utilizes variable image-scanning using codes of spanning trees to maximize compression ratios. Compression rates are expected to be significantly better than those achieved by previous methods. ***